North Atlantic Environmental Archaeology Workshop

This proposal requests funding for an international workshop to be held in Maine in October 1991. The workshop will bring together natural and social scientists from the United States, Canada, Scandinavia and the United Kingdom with a common interest in studying past human use of terrestrial and marine resources, and adaptation to the changing climate in the North Atlantic region. This workshop will provide an opportunity for addressing methodological and integrative research problems involving cooperative work by zooarchaeologists, ethnographers, paleobotanists and landscape archaeologists.